Nuclear Structure and Reaction Mechanism Studies Using Intermediate Energy Heavy Ions

This grant supports research of the nuclear physics group at Notre Dame University, to be carried out at a number of different laboratories in the United States and France. The primary areas of research are nuclear reaction studies with heavy ions and nuclear structure studies in heavy nuclei.